CAREER: Take Your Vitamins: Robust Parallel Software Through Supplement Oriented Programming

Lewis, Christopher
University of Pennsylvia
CCF-0347290

Parallel programs are notoriously difficult to write and growing
application requirements (e.g, ease of development, reliability,
security, etc.) are only exacerbating the problem. Ad hoc dynamic
techniques that observe, limit, or otherwise control running
applications (e.g., array bounds checks, assertions, bug isolation) have
helped satisfy some of these requirements in sequential programs, but
performance overhead and implementation challenges have limited their
general utility. This research develops and evaluates
supplement-oriented programming as a programming paradigm for
conveniently and efficiently enhancing parallel systems with dynamic
checks and monitors. Supplement-oriented programming is a style of
programming in which abstract computations (called supplements)
implement supplemental behaviors that are added to a running application
in order to dynamically observe, limit, or control it without changing
its core functional behavior. Supplement-oriented programming
transforms the use of supplemental behaviors from an awkward, ad hoc art
to a well-supported programming paradigm. The logical separation of
functional and supplemental behaviors allows for simpler
supplement-enabled programs, plug-and-play supplement libraries,
language and tool-based support, and (ultimately) higher quality, easier
to build parallel programs. This work also explores novel
implementation techniques, such as backfill processing, that efficiently
implement supplements using the often underutilized parallel resources
of typical systems.

Supplement-oriented programming is an enabling technology. It will not
only improve the robustness of parallel software, it will allow people
with broader abilities, interests, and backgrounds to use parallel
systems, magnifying their creative power so that they may find new and
important uses for these machines.